New Computations of Impulse Propagation Through Axonal Arborizations

9315856 Goldfinger This award will fund a project to investigate a fundamental problem in neuroscience: information propagation in branched axons. Anatomical and physiological data suggest that axonal arborizations are efficient regions for neuronal signal propagation; however, theoretical studies have found that low safety factors for impulse conduction occur in these regions. This study will reexamine the theoretical studies and use a new approach to solve the impulse propagation problem. This proposal was submitted to the Biosystems Analysis and Control Initiative which encouraged the submission of proposals that through the study of neurophysiological systems could advance engineering science and advance the knowledge of biological systems through the use of engineering analysis techniques. The research being funded by this award has the potential to further the understanding of a basic neurophysiological phenomena and advance the field of engineering in the area of computational methods. ***